Collaborative Research: Multigrid QCD at the Petascale

Proposal Title: Collaborative Research: Multigrid QCD at the Petascale
Institution: Trustees of Boston University
Abstract Date: 10/10/07
0749300
Brower
0749202
Brannick
0749317
McCormick
Numerical solutions to Quantum Chromodynamcs on a lattice are critical to high
precision experimental tests of the standard model and an ab-initio understanding of
nuclear matter. The core of these calculations involves inverting a Dirac matrix which
becomes increasingly ill conditioned as the lattice is refined. Consequently while
Terascale computing hardware has exposed this new physics, it is incapable of fully
accommodating it. On the other hand, if lattice QCD algorithms are reformulated to
exploit and reveal the physics at this finer microsale, Petascale hardware does have the
potential for opening up a new era of physics discovery. This award brings together a
close collaboration of leading experts in applied mathematics and theoretical physics to
meet this challenge by the application of new multi-level algorithms for QCD
simulations. The central mission of the proposed Multigrid Quantum
Chromodynamics at the Petascale project (MGQCD) is: to develop new and significantly
more robust multigrid methods for enabling more complex and higher fidelity physics for
lattice QCD calculations; to support their migration into Petascale simulations; and to
engage the broader scientific community through collaborative research and
educational activities that highlight the multigrid methodology.
NATIONAL SCIENCE FOUNDATION
Proposal Abstract